Technician

Hansell 9400093 This award provides funds to the Bermuda Biological Station (BBS) for shipboard technician activities associated with the research vessel WEATHERBIRD II, a 115-foot vessel. The WEATHERBIRD II is owned and operated by BBS. In calendar year 1994, the WEATHERBIRD II will support a total of 177 days of NSF-funded research in the North Atlantic. BBS technicians will be responsible for operating and repairing instruments while at sea, maintaining instruments ashore and assisting with scientific operations as necessary before and after cruises. ***